Research in Programming Language Structures: Types and Concurrency

Research will be done in the control and data structures of programming languages, with emphasis on concurrent control and higher-type data. The work on concurrency will study algebras of concurreny models, with partially ordered multisets providing concrete models and closed categories providing abstract models, while the work on type theory will focus on lambda calculus, polymorphism, and abstract data types. At the boundary of these areas a joint study will be made of proposed unifications of type theory with concurrency theory.